CAREER: Affinity and Scheduling for the Computational Grid

The design and implementation of a national computing systems grid has become a
reachable goal for both computer and computational scientists. In order to better use this
suite of resources, consisting of geographically disperse machines, instruments, and data
storage, better scheduling and resource management techniques are needed.

This project concentrates on the issue of matching the requirements of an application
to the capabilities of a resource or set of resources on the grid. This is often referred
to as determining the affinity of an application for a resource. The research will formalize
the folklore currently used in order to increase the accessibility of the grid to those
application scientists that have less experience than current users. Work will
continue in the development of a language specification to describe both applications
and resources as needed today, but with the extensibility needed for future applications as
well. This will then be used as an indexing structure into a case-based reasoning expert
system.

This project also has an extended educational portion to it. As a part of the effort to
expand Northwestern's Computer Science education in the systems area and a cross-school
initiative, we plan to offer a course in experimental systems using ideas in parallel
distributed scheduling as the basis for a larger view into practical systems,
experimentation, and teamwork. This project-oriented class will be focused around
teaching students about current parallel distributed scheduling efforts and applications.

In addition, a new seminar series will be started featuring women researchers in
computer science to help encourage female students to continue with careers in computer
science.